Civil Engineering Water Resources Laboratory

This project strengthens students' understanding of the fundamental principles of water resources engineering through the use of a new laboratory. The laboratory concentrates on water quantity rather than quality, giving students a physical understanding of the conservation of mass, momentum and energy principles. The equipment supporting this project includes: hydraulics bench, pressure gage, orifices, open channel flume, pipe networks, soil permeability meter and accessories. This award is being matched by an equal sum from the grantee.